Undergraduate Faculty Enhancement in Chemistry: A Series of Regional Workshops

Georgia State University (GSU) and the Georgia Institute of Technology (GIT) will operate an Undergraduate Faculty Enhancement project in chemistry for Georgia and surrounding Southeastern U.S. states. The project will improve the ability of faculty at two- and four-year, public and private, institutions to teach a modern program in chemistry. The major activities of the project are 15 one-week workshops and six 2-day mini-symposia. Workshop topics are: (1) molecular modeling; (2) mass spectrometry; (3) microcomputer-instrument interfacing; (4) FT NMR; (5) chromatography; (6) application of molecular orbital theory to organic and inorganic chemistry. Mini-symposia are mini-courses in: (1) organometallic chemistry and homogeneous catalysis; (2) solid state chemistry and superconductivity; (3) DNA chemistry and its application to biotechnology. The workshops and mini-symposia will be taught by GSU and GIT faculty. Additionally, prominent specialists from other institutions will serve as keynote speakers. Annual reunions of all participants during the preceding 12 months will also be held to exchange experiences in implementing new methods in the curriculum. Over a 3 year period 1710 participant days are scheduled. A compilation of all innovations in the coursework at undergraduate colleges resulting from the project will be sent to all project participants. In addition to NSF grant, participants' institutions will contribute about 5% in travel funds toward the operation of the project.